Mathematical Sciences: The Spectral Behavior of Large Dimensional Random Matrices Applied to Signal Processing

A general class of problems in signal processing is to be studied by the application of results on the limiting behavior of the eigenvalues of random matrices as the dimension increases. The problems consist of determining information on the nature of signals emitted in a noise-filled environment from an unknown number of sources from data gathered from a collection of sensors. Methods for solving the problem, such as MUSIC, rely on the spectral properties of the covariance matrix associated with the vector of sensor values. This matrix is approximated by the sample covariance matrix formed from samples of the vector data across time. The sample size usually needs to be quite large in order to effectively approximate the covariance matrix, especially when the number of sources is sizable. To aid in the latter situation theorems will be brought into play on the limiting empirical distribution function of the eigenvalues of a class of large dimensional random matrices. Applied to the signal processing problem when there are many sources, the theorems can be used to determine the number of sources and the variance of the noise, with a sample size considerably smaller than needed to approximate the covariance matrix. Moreover, they can, in certain situations, provide additional information on the nature of the signals. Computer simultations indicate that useful information can be obtained with as little as 20 sources. Research is also planned to solve some important mathematical questions concerning the limit theorems, in order to completely understand the applicability of the theorems to signal processing. Computer simulations will be performed to facilitate the analysis.